Travel Support for IEEE INFOCOM 2002 Conference; New York, NY; June 23-27, 2002

This award will provide support for approximately 20 participants (graduate, post-docs, and junior faculty) to attend the IEEE INFOCOM 2002 Conference being held in New York, NJ on June 23-27, 2002. INFOCOM is a major conference in networking, which focuses on state-of-the-art research in all areas of computer networking and data communications.